Mathematical Sciences: Ideal Clutters and Binary Materials in Combinatrial Optimization

9409274 Novick This proposal deals with connections between combinatorial optimization, graph theory, matroid theory and coding theory. Matroids generalize the notion of vector space. An ideal clutter is a type of 0-1 matrix which arises in the set covering problem. Applications of the set covering problem include airline crew scheduling, dispatching of trucks and facility location. The theory of codes is used to efficiently account for noise when sending, receiving and decoding messages. Binary clutters occur in many graph theoretic settings and in network applications. There are close connections between binary clutters, matroids and codes. The applicant proposes to study the structure of ideal, binary clutters in a matroidal context and to determine the feasibility of a matroidal approach to a long standing graph colouring problem and to some questions involving the covering radius of certain codes. The covering radius of a code is important for decoding. Planning activities will include working with two senior researchers, Andras Sebo, of CNRC in Grenoble, and J.D. Key of Clemson University. The outcome of the planning period will be several papers and a formal NSF proposal to be completed within 18 months of the start date. ***